CAREER: Biosensors Based on Carbon Nanotube-Redox Polymer Composites

Schmidtke
0547619

The overall goal of this research is to develop highly sensitive arrays of amperometric biosensors by combining the unique properties (i.e. electrical conductivity, mechanical strength, and high surface area) of single-walled carbon nanotubes with the electron conducting abilities of redox hydrogels. The specific aims are: (1) to characterize and control the immobilization of specific redox enzymes onto single-walled carbon nanotubes (SWNTs), (2) to characterize the molecular interactions between redox polymers and enzyme-modified SWNTs, (3) to develop microfabrication techniques to develop biosensor arrays based on redox polymer-carbon nanotube composites., and (4) to improve the science and engineering education of undergraduate and elementary students by providing hands-on experiences. The principal investigator (PI) will provide research opportunities to undergraduates, high school students, and underrepresented groups who are interested in biomedical and biosensor research. The PI will also inspire interest in science and mathematics in elementary school students by participating in the Sooner Elementary Engineering and Science Clubs program (SEES) at the University of Oklahoma.